ITR: Formal Methods for Robust Embedded Software

To overcome the limitations of current development methods for embedded software, which include limited use of secure and type-safe languages and the lack of support for formal validation techniques, this work explores the use of the modern secure language Java coupled with light-weight formal methods to establish correctness. It tailors the Java technology to fit the domain of embedded systems by placing restrictions on the Java subset, supporting provably correct-by-construction synthesis techniques for reactive control skeletons, and analysis techniques based on algorithmic as well as deductive formal verification techniques. A key goal is also to support advanced features such as dynamic software upgrades and process migration through safe implementation methods that are formally verified. It develops a new set of model-checking and program analysis tools that are demonstrated on prototype hardware/software co-designs of embedded Java processors.